Timesharing T1 Internet Access Through Wireless Technology

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years for a T1 wireless connection between the Potsdam Central School and SUNY's residence halls. This arrangement allows them to share a T1 link to the Internet, taking advantage of the high school's use of the link during the day and the university residence halls' use of it during the evenings and nights.